2000 Gordon Research Conference on Tribology

Partial support is provided for the bianual gordon Research Corporation on Tribology. The conference has the subtitle "Bridging the Gaps" and will attempt to bridge gaps in scale, gaps between sub-disciplines, and gaps between applied and bais research. It will also attempt to bridge any gaps in age and experience by brining experienced as well as new researchers and graduate students together for informal discussions.